Optically Driven and Controlled X-Ray Source

A low cost optically driven and controlled x-ray source will be developed in a simple, robust configuration, for a wide variety of applications, primarily in the medical instrumentation market.